Stratigraphic and Structural Evolution of the Northwestern Himalayan Foreland Basin, 12MaBP to Present

During our present NSF-supported research, we have documented a very large fluvial system (probably the ancestral Indus River) that flowed ESE across the Potwar Plateau of northern Pakistan from 12 Ma to at least 6 Ma. Isochronous strata from this time interval thicken and coarsen dramatically toward the northwest and suggest that the Indus previously entered the Northwest Himalayan foreland across the Kohat Plateau. Whether the Indus flowed toward the ESE from here during the late Miocene or whether this was actually the apex of a large mega-fan (as has been postulated) is presently unknown. Similarly, whether or not the large-scale lithofacies changes seen in the Siwalik molasse of the Potwar Plateau represent responses to switching of the primary course of the Indus rather than major tectonic events in the Himalayan hinterland is also unresolved. Answers to these questions are critical keys to understanding the long-term evolution of this major depositional system in an active foreland. In the absence of additional time control and of more extensive stratigraphic data from the Kohat Plateau, however, these problems cannot be resolved. We propose to develop seven new magnetic stratigraphies in judiciously selected location. On this supplementary chronologic database and that derived from Khan's (1983) previous studies, we will integrate sedimentologic observations that will enable us to reconstruct the fluvial system of the southern Kohat Plateau and Trans-Indus region in order to resolve these problems. In addition, by extending the same isochronous surfaces that we have studied in the Potwar region, we will be able to synthesize these two complimentary data sets and examine virtually the entire western segment of the Indo-Gangetic foreland across northern Pakistan for the past 12 Ma within the most precise and geographically extensive time framework available for a terrestrial sedimentary basin.